Oceanographic Instrumentation

The Lamont-Doherty Geological Observatory of Columbia University will items of oceanographic instrumentation to be placed in a pool of shared use equipment. This equipment is maintained for use on or in association with the research vessel MAURICE EWING that is operated by the Institution. A substantial part of the ship's operating schedule in 1991 is in support of NSF-sponsored research projects. The instrumentation will also increase the capabilities of the ships and of the institution to support research and engineering activities. The instrumentation includes: -Shipboard data management systems and components for real- time acquisition, management, analysis, and display of large environmental and geophysical data sets, -A scientific control console for the multibeam bathymetric mapping system, -Acoustic Doppler Current Profiler electronics for providing continuous, underway measurements of subsurface circulation features, and dead-reckoning navigational input. The instrumentation described above will increase the capability of the organization to support NSF-sponsored research and engineering projects.